An International Symposium on 30 Years of Neutral Currents from Weak Neutral Currents to the W/Z and Beyond, Los Angeles, California, April 1-2, 1993

This award is for partial support of an "International Symposium on 30 years of Neutral Currents" to be held on the UCLA campus. Participation is international in scope. About 65 - 80 scientists are expected to attend. The subject matter is a mix of historical reminiscence, review of current status and prospects for future developments in this sector of electroweak physics.